NSF Young Investigator

9458023 Rickman This NSF Young Investigator award is for research on the calculation of thermodynamic, structural and transport properties of both perfect and defected solids. The teaching component includes integrating computational materials science into the curriculum. %%% ***